Purchase of a Microcomputer Facility

The use of computers in modern chemistry departments is becoming more and more needed to allow these departments to carry out meaningful research at the cutting edge of the field. The acquistion of a microcomputer facility for the Chemistry Department at Northeastern University will enhance studies in the following areas of chemistry: 1) The NMR Isotope as a Structural Probe 2) Excited State Structure and Reactivity 3) Nonlinear Dynamic of Molecules 4) Metal Chelates of Hydrazinecarbodithioate Schiff Bases and Thiosemicarbazones 5) Models for Bridged Binuclear Complexes 6) Structural and Magnetic Phase Transformations of Some Transition Metal Compounds 7) Analysis of Inelastic Light Scattering Spectra of Photodissociative Systems